Spectroscopy of Metal Clusters

Investigations on the electronic structure of small metal clusters. Meaurement of photoabsorption cross sections, and studies of their relation to plasma resonance phenomena. Additional experiments on the excitation of plasma resonances by electron impact and exposure to infrared radiation.